Support Service for ECS Programs (Contract CPO-9216105) Declinations - Task Order 51

9403782 King This Task Order is to support the processing of declinations for the Division of Electrical and Communications Systems. ***